Center for Engineering Logistics and Distribution: Human Interactions in Logistics Systems

An Industry/University Cooperative Research Centers planning meeting has been awarded to determine the feasibility of Texas Tech University joining the existing Center for Engineering Logistics and Distribution. The focus of the research site will focus on Industrial Engineering that will emphasize the human interaction aspects and impact on logistics in the work environment.